The Sevilleta Field Station: Development of a Library/ Computer Center and expansion of Housing for Visiting Researchers

9311867 Crawford, C. The Sevilleta Field Station serves a large number of research scientists and students who study the extensive and ecologically diverse region of central New Mexico. The region incorporates transition zones among numerous biomes, including Great Plains Grassland, Chihuahuan Forests. Additional biotic assemblages within these biomes include Rio Grande "Bosque" (Riparian Cottonwood Forest) and Wetlands, Subalpine Forests, and Subalpine Grasslands. Much of the current scientific research in the region focuses on biotic responses to climate change at various spatial and temporal time scale (seasonal, annual, and long-term), biodiversity issues, and ecosystem restoration following natural and anthropogenic disturbance. Recently the Sevilleta Field Research Station has completed construction of several residences and laboratory facilities to meet the demand for field logistical support. Construction of a shop/storage building and a plant lath-house is scheduled to begin in March 1993. Additional funds have been used to provide laboratory equipment, computer communication systems, meteorological instruments, and a 4x4 field vehicle. This project will support significant increase in the research support capability of the Sevilleta Field Research Station. The project includes construction of a library/computer-center for the purpose of increasing research capabilities by resident and visiting scientists. The library will contain books and scientific jounals relevant to research activities in the Sevilleta region, permitting ready access by station scientists to current and past literature sources. The computer-center will consist of 20 modular desk-units, each equipped with one of a variety of computer teminals or PC's (5 IBM-compatible PC's, 5 Apple PC's, and 10 Unix Terminals, all connected to the Sevilleta Field Station Network). Resident and visiting scientists and graduate students can be assigned desk-units during their stays a t the station, permitting readily available access to computer networks, and providing a secure and spacious work area for data anaylsis and manuscript preparation. In Addition four additional residences will be constructed. This will bring the total field station residence capacity to 48 persons. ***